An Examination of the Impact of Teachers' Domain as a Professional Development Tool on Teacher Knowledge and Student Achievement in Biology

Teachers' Domain online professional development courses contain multimedia collections of science materials and resources developed by WGBH with support from National Science Foundation (NSF) during the last six years. Using an experimental design, this project will examine the effects of online professional development courses on high school biology teachers' content and pedagogical knowledge, and on their students' knowledge. The impact of using 'rich media' will also be tested. Hierarchal linear modeling techniques will be used to analyze the data. This project will contribute to the knowledge base of what makes a difference in student achievement by testing the efficacy of online professional development for science teachers. The issue of science teachers' content and pedagogical knowledge poses particular problems at the middle and high school level, where a large percentage of teachers are teaching outside their area of expertise. This project will contribute substantially by examining both the effect of professional development on high school biology teachers and the connection between professional development and student achievement. In examining the effectiveness of the Teachers' Domain professional development courses and materials on teachers and students for a diverse group of New York State school districts, it will be possible to understand how teachers can go beyond surface familiarity with basic concepts and textbook presentations and increase their pedagogical content knowledge.